Study of Ionization Efficiency of Atoms in Microcapillary Plasmas

The project studies the efficiency of tunneling and multiphoton ionization in the production of radiation from laser plasmas generated in microcapillary discharges. The information from this research is critical to an understanding of the design of soft X-ray lasers.